A Comprehensive Program for the Control of Structures Subjected to Seismic Excitations

9423575 Meirovitch The project will develop a comprehensive approach to the problem of mitigating the effects of earthquakes on structures through passive and active controls. The passive control through base isolation and damping materials will be considered. The active control represents digital nonlinear control in the presence of stochastic disturbances. it is proposed to study a combination of the passive and active control schemes to achieve best performance. The plan is to combine analytical developments with practical considerations, such as computational burden and sensor and actuator technology, to design and implement structural control. ***